Young Scholars Program in Life Sciences

Purdue University seeks to provide a Young Scholars Program in agricultural and environmental sciences. The seven week summer residential program will be held on the West Lafayette Campus of Purdue University. The program will consist of 20 high school students who have completed their junior year from Indiana and the four contiguous states of Michigan, Ohio, Kentucky, and Illinois. The program will provide students an opportunity to broaden their appreciation of the scientific challenges offered by agriculture and natural resources disciplines through a combination of classroom lectures, informal structured discussions, and directed student research projects and hands-on laboratory activities supplemented by field trips.